Minority Training Program in the Marine Sciences

Minorities are not well represented in careers in science, particularly the geosciences. Considerable effort is being made to increase the participation of underrepresented minorities in marine science. To this end, a two-year training program in marine sciences will be initiated at the Duke University Marine Laboratory. This will include a semester-in- residence college program, which provides a comprehensive educational and research experience for minority undergraduate students. This will include a mentor-in-residence, i.e., a minority faculty member, who will function as a visiting scholar, a tutor and role model for these students to enhance the success of their educational and research experience.